REU Site: Research Experiences for Undergraduates in Marine Biology at the Shoals Marine Laboratory

Abstract 04-53175
This award provides renewed funding for an REU Site program at the Shoals Marine
Laboratory (SML), a seasonal field station operated jointly by Cornell University and the
University of New Hampshire. SML is located on Appledore Island, ME in the Gulf of
Maine, about six miles offshore of Portsmouth, NH. The program will bring nine students
per summer to the SML for a ten week research experience. The scientific focus of the
program is marine biology. Examples of prior research topics of REU students include
food web interactions and community ecology, effects of climate change on local
ecosystems, the ecology of supratidal pools, interactions among colonial organisms,
and population comparisons in amphipods. Weekly classes will be given on topics such
as writing, ethics, research design, data analysis, and career planning.